Control Problems of Systems of Strongly Coupled Partial Differential Equations

9804056
Lasiecka

The present proposal aims at investigating mathematical aspects, as well
as control and optimization properties, of models of interactive systems,
which are described by strongly coupled partial differential equations, and
which are subject to boundary and point control action. These are both the
mathematically most challenging and the physically most relevant cases.
The systems chosen are complex and realistic enough to serve as
benchmark problems for the technological applications described below.
Specific issues to be examined for the entire structure, and/or a component
thereof, include: (1) well-posedness and regularity of solutions; (2) exact
controllability in the oscillatory case for systems such as shells; (3)
uniform stability of the structure solutions as well as, in the non-linear
case, a corresponding study of the asymptotic behavior; (4) optimal
control theory and min-max game theory with non-definite quadratic cost,
as well as robust stabilization. While in recent years these problems have
reached a considerable level of maturity for single classes of dynamics -
diffusive and oscillatory - their study to strongly coupled systems with
components of both diffusive and/or oscillatory type is just at its infancy.

Control, optimization and stability problems for dynamical systems have
long played a well-recognized and critical role on a broad range of diverse
applications. In recent years, the emerging technology of smart materials
and structures has brought forth to the front of scientific investigation the
pressing need to control, optimize and stabilize "interactive structures",
whose components' dynamical behavior is governed by partial differential
equations. Recent civilian and military research has convincingly
demonstrated smart materials/structures to be a laboratory reality. These
new structural concepts actively damp noise and vibration, suppress flutter
at the trailing edges of airfoils, suppress the airborne or water borne
acoustic signatures of ground vehicles, aircraft, and submarines, and
reduce the stressful noise levels within them. A realistic problem of keen,
present interest to both the civilian and military industry is the problem of
reducing, or eliminating, the unwanted noise field in a three dimensional
cabin with curved walls, modeled by shells, by means of smart materials
such as piezo-electric patches or memory alloys bonded to, or embedded
in, an elastic wall. When wired with an appropriate voltage (control), the
resulting bending moment generated by the elastic wall is expected to
produce acoustic waves that counter the unwanted noise, thus leading to
their elimination.